POSE: Phase 1: Parallel Compact Thermal Simulator-Open-Source Ecosystem (PACT-OSE): Building an Ecosystem for Thermal Modeling of Chiplet-based Integration

Managing heat in semiconductor systems is a critical prerequisite to improving computing performance, energy efficiency, and reliability. This requirement is especially important in new chip designs that stack and combine multiple components in compact spaces. Such systems lead to concentrated heat and increased risk of failure. Additionally, existing thermal analysis tools are often slow, expensive, or inaccessible and this limits their use in modern, fast-paced chip design processes. This project addresses these problems by developing an open-source ecosystem around Parallel Compact Thermal Simulator (PACT), a fast and scalable thermal simulation framework for advanced semiconductor systems. By making advanced thermal modeling more accessible and integrating it into open design workflows, the project accelerates innovation in semiconductor design, supports the development of more energy-efficient and reliable computing systems, and strengthens the open-source microelectronics ecosystem. These advances contribute to national priorities in energy-efficient computing, semiconductor leadership, and workforce development by training students and researchers in thermal modeling and open-source electronic design automation (EDA) tools.

This project establishes a foundation for the PACT Open-Source Ecosystem (PACT-OSE) for thermal modeling of chiplet-based integrated systems. The project transitions PACT from a mature research prototype into a widely adopted platform through coordinated activities, including community mapping, user needs assessment, governance design, and outreach. PACT is a Simulation Program with Integrated Circuit Emphasis (SPICE)-based parallel compact thermal simulator that models heat flow using equivalent electrical circuits, enabling fast, modular, and scalable simulation using established circuit solvers. Its parallel implementation supports large-scale chip and package simulations that are challenging for existing open-source tools. An extension for machine learning (ML), ML-PACT, further accelerates steady-state and transient simulations using lightweight machine learning models trained on small datasets. The PACT-OSE will identify key user and contributor communities, gather technical requirements through interviews and workshops, define contribution and governance processes, and enhance documentation and usability. The resulting open-source foundation will enable rapid thermal analysis with realistic design workflows and position PACT-OSE as a core engine for future open-source EDA and multi-physics co-design environments.